The Multicultural Mathematics Project

The Multicultural Mathematics Project (McMath) will develop an introductory, general education course in geometry. The course will use architecture--particularly the architectural constructions of the dwelling places of various cultural and social groups--as a vehicle to link the discipline of mathematics with the disciplines of physics, engineering, urban geography, and anthropology. The course will foster multicultural understanding in its exploration of the cultural embeddedness of mathematics as reflected in the dwelling places of diverse groups of people. Instructors will employ multiple teaching strategies as a response to diverse ways of knowing, in order to encourage the academic achievement of all students, both those who have had prior success in mathematics and those who have not. Course materials will be piloted and will be evaluated both by the development team and by an outside evaluator.